Quantum and Classical Evolution.

Proposal DMS-0400526
PI: Israel-Michael Sigal, University of Notre Dame
Project title: Quantum and Classical Evolution
Project abstract:
In this project the PI addresses problems of long-time and asymptotic
evolution in quantum and classical field theories. More specifically, he
aims to
(A) Determine the resonance structure of and construct the scattering theory
for systems of non-relativistic particles such as atoms and molecules
interacting with the quantized electromagnetic field;
(B) Construct scattering theory and the theory of periodic/quasiperiodic
motion of solitons (or solitaty wave solutions) for the nonlinear
Schroedinger equation with an external
potential;
(C) Construct theory of tunneling for solitons in the nonlinear Schroedinger
equation with an external potential and in the (second) quantized version of
this equation.
Mathematically, these problems deal with linear partial differential
equations in an infinite number of variables (A) and with nonlinear partial
differential equations with interplay between the nonlinearity and geometry
of the external potentials (B) as well as with the problems bridging both
frameworks (C).
The problems above originate in our trying to describe some
basic physical phenomena such as emission and absorption of radiation by
quantum, non-relativistic systems (e.g., atoms and molecules) and dynamics
of Bose-Einstein condensates. They also play an important role in
technological applications, e.g. optical communication. It is hoped that the
results the research to be undertaken will provide conceptual and unifying
underpinning to a
more quantative (phenomenological, numerical and
experimental) physical treatment.
In selecting the research projects above the PI was guided by their
importance, possibility of the emergence of new mathematics and by the
availability of tools and ideas to start probing them. These projects will
also provide fertile ground for excellent
entry problems for graduate students, postdocs and beginning faculty whom
the PI will supervise and mentor.